Flow and Sediment Transport in Ice-Covered Alluvial Channels(Jointly Submitted with Hungary's Research Center for Water Resources)

A combined numerical modeling and laboratory study will be conducted to simulate flow in ice covered rivers and channels. Velocity distributions, shear stresses, and macro turbulence features will be explored for flow under an ice cover and over an alluvial sediment bed and the dunes which are generated on such a bed. The computations will use a model which has recently been utilized in a study of turbulence over a wavy surface. The laboratory experiment will use an existing sediment flume with simulated ice. Improve accuracy in the prediction of flow rates, free surface height, and sediment transport under freezing conditions will have an important impact on environmental and structural issues related to the hydraulics of ice covered waters.